New Challenges in Aggregation Kinetics

Rosales
0703937

Aggregation, the coalescence of monomers into large,
structured clusters, is found at the heart of many phenomena in
science and industry. In a simplified model, cluster growth is a
discrete stochastic process of adding or shedding monomers, one
at a time. The Becker-Doring (BD) ordinary differential
equations govern the growth of small clusters by surface
reactions. Large clusters, growing by the diffusion of the
surrounding monomers, are described by the Lifshitz-Slyozov
equations. Small clusters nucleate and form large ones by a slow
process caused by fluctuations over a free-energy barrier. The
investigator, Joseph Farjoun, studies the following aspects of
nucleation:
(a) The Zeldovich nucleation formula disagrees with the
experimental results. It is highly sensitive to the
super-saturation's value, and hence on the distribution of
cluster-sizes. The investigator seeks a more accurate formula by
resolving the super-saturation to higher order. In addition, a
simulation based on renormalized Monte-Carlo methods is providing
more data on the nucleation rate.
(b) The long-term distribution of clusters sizes, as determined
by the Zeldovich nucleation rate and LS growth rate, is a
classical problem. The investigator studies a connection to the
smooth similarity-solution: A deeper analysis of the partial
answer in his PhD thesis.
(c) The analysis of 2-dimensional nucleation is a natural
extension of the work in the investigator's PhD thesis. The
logarithmic behavior of monomer concentration about nuclei in
2-dimensions forces the nucleation process to be spatially
non-homogeneous. The investigator studies this by connecting to
previous work on 2-dimensional diffusion.
(d) The investigator studies the dynamic dependency of the
aggregation process on other physical parameters. Specifically,
he analyzes aggregation in a system with a varying temperature.
The nucleation rate and the total amount of clusters formed are
determined by a balance between the decreasing temperature and
the depletion of monomers, which have competing effects on the
super-saturation.

Phenomena that are modeled by aggregation -- solidification,
precipitation, and the condensation of vapor into droplets --
appear in many biophysical and industrial contexts:
Glass-to-crystal transformations, crystal nucleation in
under-cooled liquids, and in polymers, colloidal crystallization,
growth of spherical aggregates beyond the critical micelle
concentration (CMC), and the segregation by coarsening of binary
alloys quenched into the miscibility gap, to name but a few
specific examples. The field of micro-chip fabrication stands to
benefit greatly from a theory capable of predicting the short-
and long-term behavior of 2-dimensional clusters. Resolving the
long-standing disagreement between the Zeldovich formula (which
predicts the rate at which clusters are created) and the
experiments, finding the time-scales of the various phases of the
aggregation process, and a theory for 2-dimensional aggregation
(all of which are topics of research in this project) allows for
more accurate predictions and better design. A more realistic
model, which accounts for the varying temperature, can be used in
the design of vapor-forming industries (e.g. power plants), and
in weather prediction. The current state of the art in
aggregation is that of extremes: the behavior at very short and
very long times, the behavior of very small or very large
clusters have been studied extensively. In this project, the
work of the investigator, Joseph Farjoun, bridges these gaps.